Presidential Young Investigator Award: Hybrid Control for Robotics

This investigator was nominated for a Presidential Young Investigator award. His research involves a new theory of hybrid control for robotics, which will be tested for effectiveness in assembly and other manufacturing processes. The basic theory will also be extended to the robust control of robots near singularity configurations, and the active control of multiple robots in contact. Further theoretical work will also be done on path planning for obstacle avoidance, extensions of screw theory and the application of Clifford algebras to problems in robotics. The program of research will integrate experimental and analytical work. The PI is interested in working closely with industry on important problems which have the potential for making a significantly contribution towards increasing manufacturing productivity. In the first year, this award will be supplemented for support of two undergraduate students who will participate in the research. Their role will involve the design of six-degree-of-freedom joysticks for robot control.